Success and Diversity in Biological Sciences, Physical Sciences and Geosciences

The College of Arts and Sciences (CAS), the School of Marine and Atmospheric Sciences (SoMAS) and the Department of Technology and Society (DTS) at Stony Brook University is to establish an S-STEM project, which over the four years of support, is to provide scholarships for a minimum of 104 students.
DTS is to be responsible for the day-to-day management of the project.
In addition to the financial support the project is to make available to participants a network of advising, mentoring and other academic support from the extensive DTS support network (STEM Smart) that has been developed over more than a decade.
Students are to be selected through a competitive application process from the pool of economically disadvantaged students that apply to the university and advanced students who are already matriculated at the university.
A committee of representatives from the university composed of members from the offices of admissions, financial aid and the departments within CAS, SoMAS and DTS is to meet once a year to select students.